Investigative Science and Law Enforcement Technology - Phase 2

Interdisciplinary (99)

This project is developing a rubric to assess criminal investigation skills across content specialties (such as law enforcement and Homeland Security), a curriculum that expands related degree programs -- including two criminal investigation-related certifications, and a career ladder that builds 2+2+2 articulation agreements.

The criminal investigation rubric assesses understanding of science and technology as it relates to: investigation, interview and interrogation, forensic biology, forensic imaging, crime and incident mapping, homeland defense, computer forensics, hazardous materials, geo-spatial, private security, and homicide analysis. Curriculum materials being developed incorporate topics in technology-intensive subjects in investigations, interoperability, and intelligence. They include the preparation of three online courses: Forensic Psychology I, Introduction to Intelligence, and Crime Prevention Through Environmental Design. The two certifications being prepared are "Crime Mapping and Analysis" and "Intelligence Analysis".

This project serves diverse and underserved segments of the population, particularly in rural areas and in tribal communities and regions in Minnesota and North and South Dakota.